Computational Biology Training Program

9413229 Phillips This award to large group of outstanding faculty from Rice University, Baylor College of Medicine and the University of Houston provides funds for support of a training program on computational aspects of modern biology, including experimental and theoretical analyses of macromolecular structure using crystallographic, microscopic and other experimental techniques, and computational analysis of genomic structure. The faculty groups from each institution provide complementary skills in biochemistry, biophysics and computer science, resulting in a program broader and stronger than could be provided by the individual institutions. Important aspects of the training include dual mentorship for postdoctoral trainees, a large summer undergraduate program and a biannual national symposium on selected topics in computational biology. This award is also supported by the New Technology Program of the Division of Advanced Scientific Computing and by the Computational Biology Activity of the Division of Biological Instrumentation and Resources. ***